Effects of Shell Calcification Depth on Benthic-Planktonic 14C/C

9416863 Lohmann This study will analyze the radiocarbon in shells of foraminifera in sediments from Little Bahama Bank, in order to determine whether it is feasible to use this kind of data to study changes in upper-ocean circulation under past climate states. Two competing hypotheses on what controls radiocarbon differences in sediment components also will be tested. ***